Mathematical Sciences: Algorithms and Numerical Analysis forDifferential Equations

The research will be in the formulation of algorithms for the numerical solutions of partial differential equations for stationary and non-stationary problems and the development of methods for their analysis. Specific topics include construction of preconditions for use in iterative algorithms for parallel computer architectures, domain decomposition techniques, problems with singular perturbation structures, treatment of corner singularities, superconvergent approximations for existing finite elements, parabolic equations with time dependent coefficients, streamline diffusion method for convection dominated problems with turning points, adaptive mesh refinements and pollution effects etc. Technical problems in science and engineering are so complex today that most realistic ones will require numerical solutions with the help of computers and supercomputer. The research here is central to the design of accurate and efficient algorithms for use in present and future computer environments.